National Aeronautics and Space Administration (NASA) Support of the National Center for Atmospheric Research Activities

This proposal supports the National Center for Atmospheric Research activities funded by the National Aeronautics and Space Administration for various research endeavors related to atmospheric research.